Multimedia Laboratory in Psychology

The Psychology Department is developing a computer-based multimedia laboratory. The department has a well-established research-based curriculum with an independent senior research project at its focus. In the past, students began their research training in the second year, with Research Methods in Psychology. With the new facility, an Introductory Laboratory is added, requiring students to begin their research training in their first semester. This laboratory introduces students to the experimental nature of psychology at the beginning of their college careers. The laboratory provides for multimedia-based presentation of stimuli and nomothetic rather than idiographic analyses of data. The new facilities also allow enhancement of existing upper-level laboratory classes. Laboratory classes that benefit include experimental courses in Cognitive, Sensation and Perception, and Social Psychology. The facility also provides an expanded technological foundation for independently conducted senior research projects.